Power System Stability and Control

ECS-9712180 Fatehi The goal of this proposed project is to complete the investigations required to write a full research proposal to develop a new technique for U.S. power industry in order to improve the stability of power system and to increase power transfer capacity of the existing transmission lines. The result of this research will provide more economic and secure electricity in the deregulated environment.